Collaborative Research: Travel: International Council for Exploration of the Sea: Travel Support for Academic Participants, 2024-2027

This project is to enable U.S. scientists to participation in the ICES Annual Science Conference, its Working Groups and Workshops, Symposia, Theme Sessions, and Training Programs. The International Council for Exploration of the Sea (ICES) was founded in 1902 as an intergovernmental organization that conducts science and provides management advice on marine resources in the North Atlantic and neighboring seas. The United States has been a member since 1912. The participation of U.S. academic scientists in ICES activities advances our ability to develop and harness new techniques and technologies for observing marine ecosystems; and advance our understanding of their structure, function, and dynamics.

ICES is a prominent intergovernmental organization that conducts science and provides management advice on marine resources in the North Atlantic and neighboring seas, including the Arctic, Mediterranean Sea and the Black Sea. Over 3,000 scientists from over 800 institutions in its 20 member countries participate in the activities that it organizes each year. Its mission is to “advance and share scientific understanding of marine ecosystems and the services they provide and to use this knowledge to generate state- of-the-art advice for meeting conservation, management, and sustainability goals.” The US role in ICES has become more important as global concerns related to overfishing, effects of climate change, loss of biodiversity, ocean acidification, harmful algal blooms, and effects of aquaculture on ecosystems have become international in scale and requiring coordinated research programs. This project will provide travel support and both early-career and established scientists will be considered to assure strong and balanced representation of the U.S. academic community.